Antimatter, Darkmatter and Cosmic-rays

The proposal for supporting the construction of a RICH (Ring Imaging Cherenkov) detector for the Alpha Magnetic Spectrometer as a cosmic ray detector on the Space Station. The proposed work include: construction and test of the RICH detector, participation in the Data Acquisition System of the RICH detector, computer simulation of the RICH detector for optimization and analysis.